Integrated Bioprocessing/Molecular Strategies for Heterologous Protein Production in Perfusion Plant Cell Cultures

9712916 Su This proposal seeks to improve the production of heterologous proteins in plant cell culture by integration of three new technologies: anew promoter; anew reporter gene; and an improved perfusion bioreactor. The recently identified strong, inducible, acid phosphatase promoter and signal sequence in Anchusa officinalis will be used in conjunction with the green fluorescent protein (GFP) gene as a reporter protein to monitor and optimize expression and secretion. A perfusion bioreactor will be designed to enhance continuous production of secreted proteins. ***